Problems in Analytic Number Theory

One of the most enduring problems of prime number theory is to determine
how many elements remain when a set of numbers is sieved. There is a large
literature on this topic, originating in seminal papers of Viggo Brun in 1914,
but even today the best known bounds are either not optimal or not proved
to be optimal. By starting with a simple sieving situation and then moving
incrementally to more complicated configurations, it is hoped that optimal
bounds can be found, accompanied by proofs of optimality. The past work
on the PI on the pair correlation of the zeros of the Riemann zeta function
has been interpreted as providing evidence that the zeros are spectral
in nature. The Pair Correlation Conjecture itself is equivalent to an
assertion concerning the mean square distribution of primes in short intervals.
In new work with k. Soundararajan, it is proposed to extend the second moment
heuristics to other moments, and hence develop heuristics concerning the
distribution function of primes in short intervals. It is hope that this
new information, when interpreted in terms of zeros of the zeta function,
will provide further insights concerning the distribution of the zeros,
including the Riemann Hypothesis.

The seemingly irregular distribution of prime numbers has been a puzzle
to mathematicians for many centuries. In the early 20th century, new
ideas were introduced, which allowed one to deal with sieving for primes
as a problem of linear programming. This led to many new results, but
even today the linear programming extremals remain to be found in most
situations. By starting with a simple situation and moving incrementally
to more complicated ones, it is hoped that it will at last be
possible to locate the extremal configurations. Heuristics concerning
the distribution of primes in short intervals can be developed from the
Hardy--Littlewood prime k-tuple conjecture, and the insights gained from
such reasoning has an impact on other aspects of prime number theory,
including the famous Riemann Hypothesis which dates from 1860.